NSF Student Travel Grant for the 2022 International Symposium on Distributed Computing (DISC 2022)

This award is for student travel support for attending the 36th International Symposium on Distributed Computing (DISC) in Augusta, Georgia, October 25-27, 2022. DISC is a premier conference on distributed computing with an emphasis on theoretical foundations, modeling, and analysis of distributed systems. This grant will help to broaden the student participation in the conference and expose the students to state-of-the-art research on distributed computing. Emphasis is given to students from underrepresented population groups. The grant aims to support 20 students.